SBIR Phase II: Electrochemical Acoustic Tools for the Analysis of Batteries

The broader impact/commercial potential of this project will be in helping batteries exceed the quality, performance, and safety demands of mass-market electric vehicles, renewable energy generation, and next-generation consumer electronic devices. The need for high-performance batteries is accelerating, and as batteries grow in energy density, size, and production volumes, so will the issues that persist with quality. Unless these issues are addressed, they will continue to have major implications for the performance, safety, and adoption of these important technologies. The challenge is that outside of R&D labs, the industry relies on essentially the same basic data as when batteries were first invented: voltage, current, and temperature. As a result, at commercial scales, only a small percentage of batteries are inspected in a meaningful way, with methods that only provide indirect information about physical condition. This Phase 2 project is focused on developing a new platform for production-level battery inspection that directly probes the physical condition of batteries with a high testing throughput. This could lead to better decisions in manufacturing environments and could decrease system costs, increase capacity and operational lifetime, and accelerate the scale-up of promising new materials.

This Small Business Innovation Research (SBIR) Phase 2 project addresses the need for a physical mode of inspection in battery production environments that is capable of screening every cell with high fidelity. Currently, inspection in production-level environments are limited to electrical measurements and X-rays. Electrical methods provide only indirect and cell-averaged information about physical condition, and X-rays are not practically able to detect the distribution of electrolyte within batteries nor the formation of the solid electrolyte interphase (SEI) layer (both of which strongly affect long-term reliability, performance, and safety of batteries). This Phase 2 project aims to develop a platform that utilizes sound-based methods to inspect batteries in production-environments. This will involve developing a scaled, automated hardware system as well as software and computational methods for processing and analyzing the acoustic signals. The Phase 2 project will also include various testing and validation efforts to assess the ability of acoustic analysis to both directly determine the performance quality and reliability of cells beyond beginning of life capacity and resistance, as well as to improve the performance of strings of cells and modules.